Presidential Faculty Fellow

9350467 Fabien This is a Presidential Faculty Fellow (PFF) award. The activities under this award include development of innovative courses in the areas of kinematics and dynamics of machines, dynamic system analysis and automatic controls. In addition, laboratory development and research projects are pursued related to analysis and synthesis of mechanisms, vibration control of nonlinear flexible structures, and design of electromechanical systems. Specific contributions include significant and novel contributions to the field of mechanical engineering, specifically dealing with the application of modern control theory for electromagnetic leirtation devices, and the formulation of linear and nonlinear control strategies for the analysis and design of high-speed mechanisms. ***